Theory Structure and Scientific Change in Molecular Biology

Professor Schaffner is examining theory structure and research strategies in molecular biology. In order to develop a more general approach to these issues, he is first undertaking three detailed case studies: a recent historical inquiry into the molecular explanation of the generation of antibody diversity; simple molecular learning mechanisms in Aplysia; and the genetic control of the life cycle of the HIV virus. These case studies are intended to lead to a broader conceptualization of theory structure and research strategies in molecular biology. This conceptualization should include an examination of the conceptual structure of theories, models, mechanisms, principles, and generalizations in molecular biology, and their relations to experimental results and new experimental technologies. Professor Schaffner is then considering ways in which these elements (e.g. theories, models, principles . . .) change as science progresses, and what dynamical factors drive such changes. As part of this study, he is examining various heuristics for theory and model changes and the proposal and evaluation of laboratory experiments.